MGR Honorable Mention: Alicia Melendez

Intercellular communication is important in development. Two genes thought to be involved with cyclic AMP protein kinases in Drosophila will be studied. Cyclic AMP is a common cell to cell communicator. The P element, an inserter and disrupter of gene function, will be categorized by PCR and their effect on development studied. Understanding how cells "know who and where they are" is of fundamental importance to an understanding of the genetic control of development.